Investigation of Convective Heat Transfer Properties of Electrorheological Fluids

Certain suspensions of fine particles in a dielectric liquid will change rheological behavior in the presence of a strong electric field. These suspensions are called electrorheological (ER) fluids, and there has been considerable interest in exploiting their unique behavior for a wide variety of hydraulic devices such as clutches and valves. The objective of this research is to experimentally investigate the convective heat transfer characteristics of ER fluids and to identify parameters specific to ER fluid flow which may be imporvant to the heat transfer of these fluids. Heat transfer measurements will be made by radiatively imposing a known heat flux at one surface of a channel flow and optically measuring local temperatures at the surface. With this information, local heat transfer coefficients will be determined by estimating the local bulk fluid temperature in the channel. Such information on thermal transport will be important for design in many of the applications proposed for ER fluids.